A Variational Approach to Stimulating Evolving Small Structures

9820713
Suo
Modern electronic devices are solid structures of submicron feature
sizes. Not only do they serve electronic functions, but also they must
maintain structural integrity during fabrication and use. The field of
small structures is a relatively new one, to which solid mechanics
researchers can make substantial contributions. This proposal addresses a
unifying theme for many problems in this field: structural evolution. In
a solid structure, diffusive processes can relocate mass, so that the
configuration of the structure may change over time. For example, a film
may break into islands, and an interconnect may grow cavities. While
studies of some of such phenomena go back many years, recent technological
developments demand much more sophisticated capabilities. Today
general-purpose finite element codes can analyze stress fields in complex
structures. However, no such a code exists to simulate evolving structures
with multiple energetic forces and kinetic processes. A variational
approach developed recently offers an exiting prospect. It extends the
established approach in continuum mechanics by including mass relocation as
an independent kinematic variable, in addition to deformation. The
approach can include energetic forces ranging from mechanical stress to
electron wind, and kinetic processes ranging from grain boundary migration
to surface diffusion. Attention in the past has been focused on specific
phenomena, such as epitaxial film instability and interconnect voiding.
This proposal addresses several basic issues that will arise in
implementing a general-purpose code. Emphasis is placed on aspects related
to surface energy and elastic energy, because both energetics are
ubiquitous in small solid structures, and because their implementation
issues are generic. Specifically, we will examine the following aspects:
* Surface energy anisotropy
* Generalized forces due to elasticity
* Strain-dependent surface energy
We will develop their analytic basis for the finite element method,
implement them in our computer code, and use the code to simulate several
phenomena that highlight their effects. The study of the phenomena at
small length and long time scales will push the envelope of the Solid
Mechanics discipline into a field of great scientific and technological
importance.